Heat Transfer in the Vicinity of a Radial Jet Reattachment

This study will focus on the heat transfer in the vicinity of the reattachment of a free shear layer. The research comprises both theoretical and experimental studies to: explore the flow field of a subsonic turbulent radical jet which reattaches on an adjacent plane surface; determine the heat transfer between a subsonic turbulence radical jet and an adjacent plane surface; and explore the manufacturing and applications of a radical jet reattachment.